SBIR Phase I: A New Pulse Laser System for Color Holography

This Small Business Innovation Research Phase I project further develops the use of Pr:YLF as a unique lasing crystal specifically for pulsed laser holography. In this project a method of pumping Pr:YLF with pulses of blue laser light derived from the frequency doubled output of a Cr:LiSAF laser is demonstrated. Outputs in red, green and blue will permit true color pulsed laser holography for the first time. Medical imaging, particularly for diagnosis of the human eye, as well as display holography and replacement of helium cadmium lasers are just a few of the applications of this technology.